A New Calculus Program at the University of Michigan

The University of Michigan plans to completely revise its first year calculus program over a three year period, adopting the materials developed in the Harvard consortium project. The main features of the new program are: (1) An intensive and ongoing instructor training program for all faculty and teaching assistants. (2) A classroom environment that incorporates cooperative learning and experimentation by students. (3) Major syllabus revision which emphasizes problem solving, geometric visualization, and quantitative reasoning. (4) Integration of the graphing calculator into the curriculum. The principal goals are: (1) A concept driven course. (2) Students are better prepared for, and more likely to take, further mathematics and science courses. (3) A more enjoyable experience for students.